Presidential Young Investigator Award: Studies in NonlinearWave Propagation & Optical Signal Processing

This grant provides support for Prof. Banerjee under the Foundation's Presidential Young Investigator (PYI) program. His research concerns the problems of wave propagation in nonlinear and dispersive media and their numerical simulation on computers. He is also interested in acousto-optics and optical information processing, including the optical interconnection problem. The PYI Awards program provides research support to the Nation's most outstanding and promising young science and engineering faculty. The awards are intended to improve the capability of U. S. academic institutions to respond to the demand for highly qualified science and engineering personnel for academic and industrial research and engineering. This PYI has made significant contributions to his field of engineering and has potential to become a leader in academic research and education. The diary note describes the rigorous selection procedure. A basic grant award in the amount $25000 is highly recommended.